Collaborative Research: CMG: Anisotropic Atmospheric Dynamics Across a Wide Range of Scales

Our focus is on the extratropical atmosphere, with special emphasis
on the dynamics in highly anisotropic backgrounds, such as is the
case near the tropopause. Theoretically, the wave dynamics for a
highly-anisotropic background atmosphere has been much less studied
than for the homogeneous and isotropic case. Yet it is intrinsic
in the atmospheric mixing process that nearly-stepwise environments
form in the atmosphere. Furthermore, when the anisotropy is in
potential vorticity (PV), the impact on large-scale wave dynamics
occurs at leading order, since Rossby wave propagation depends on
the presence of PV gradients. The proposed work focuses on
the dynamical impact of background anisotropy on cyclone organization,
frontogenesis, gravity wave emission and the overall atmospheric
energy spectrum. The unifying theme is that it is crucial to study
the whole spectrum of scales simultaneously, from energy injection
at synoptic scales down to dissipation at frontal scales, because
nonlinear interactions affect all scales in between. Hence, the
low-frequency variability and predictability of the planetary
scales depend significantly, through nonlinear cascades, on the
dissipative process at the meso- and frontal scales. A new
class of dynamical models take specific advantage of jumps in
potential vorticity at a tropopause discontinuity. Exact- and
high-resolution solutions provide a testbed to assess the adequacy
of current operational models in resolving the dynamical anisotropies.
Recognition of the highly-anisotropic nature of tropospheric
dynamics redirects previous mathematical efforts on isotropic and
homogeneous turbulence to atmospherically more relevant anisotropic
problems.

The weather over North America is greatly influenced by
the pattern of winds near the tropopause, a level of sharp
change in the atmospheric conditions found at an altitude of
roughly 10 km. Because operational weather models often do
not have sufficient resolution to accurately describe the
atmospheric motions at these heights, our ability to understand,
and thus forecast, the weather and climate throughout the
atmosphere is diminished. An example of one of the many issues
which will be investigated is why many of the current climate
models show a biased error of colder temperatures near the
tropopause. The scope of this work seeks to unify the dynamics
of the atmosphere from the largest continental-scale (low pressure)
cells, through their subsequent collapse to intermediate-scale
storm fronts, and the generation of yet smaller-scale (gravity wave)
turbulence. The primary focus of new theoretical progress is to
account for the important contributions of the tropopause in the
evolution of weather patterns. The proposed research lies at the
intersection between mathematics and atmospheric science, which
is now possible through the synthesis of the investigators' recent
advances in tropopause modeling and new results in the numerical
computation of the statistics of atmospheric turbulence. The
anticipated impact of further understanding of how energy in the
lower atmosphere evolves over the full range of thousands down to
tens of kilometers would be the elucidation of currently
under-resolved features of weather prediction and climate models.